Consortium for Faculty Development and Instructional Enhancement: Network Subtask

Auburn University will use this grant to connect Patterson State Technical College to the Internet. The students and faculty of Patterson State Technical College need the Internet connections to be able to access information resources throughout the state, the nation and the world. The connection will benefit the faculty, staff students of this institution as well as the community in general. The award provides partial support of the project for two years.